Development of an Undergraduate Laboratory for the Hydrologic Sciences at the University of Notre Dame

A unique field and laboratory facility for the study of surface and subsurface hydrogeology is being installed. This facility will provide students with the opportunity to observe the short and long term components of the hydrologic cycle in relation to the behavior of atmospheric, surface water and groundwater environments. Included among the capabilities of the facility are: (1) the ability to drill, case and test groundwater boreholes, (2) use of a networked field portable computer system, (3) completion and interpretation of borehole geophysical logging, and (4) collection and interpretation of remote sensing images. The facility will provide significant educational opportunities for undergraduates enrolled in courses offered in civil engineering, earth sciences and pre-engineering.